Conference on Technology and Cooperative Work (Computer and Information Science)

This award is for a program planning conference on technology and cooperative work. The object of the conference is to promote awareness of the relevance of behavioral science research and theory to the design of computer and communications systems for collaborative work, and to stimulate both design efforts based on that knowledge and interdisciplinary research regarding user satisfaction and competence with advanced information systems, as well as the behavioral impact of these systems. Participants include social scientists who have made empirical and theoretical contributions to the study of relevant social and cognitive processes, studied particular forms of collaborative work or carried out investigations of the impact of new technologies, as well as information systems designers. The conference includes technology demonstrations at the Planning and Decision Laboratory at the University of Arizona, a state-of-the- art facility designed to support computer-mediated brainstorming and decision-making.